Press Project 1.1: Concept Development

This is a part of the coordinated research program in seismic precast concrete structures. This project will develop structural concepts for using precast concrete in seismic zones of the United States. Due primarily to current building codes and lack of relevent analytical and experimental data, precast concrete is not currently used in U.S. seismic zones. Initially, several regional research workshops will be held around the country. These will be limited in size to facilitate interaction among the participants who will be invited to represent various contributors to the design/construction industry (including architects, developers, researchers, etc.) Next, the economic viability as well as structural feasibility of the design concept will be investigated. Design documents will be prepared using the concepts resulting from the workshops. Feedback about economical ways to improve the details proposed from general contractors will be obtained. Potential use of automated processes will also be considered. The analytical model development and design criterion development projects will require a feedback from design engineers and other industry representatives. The required informtion to academic researchers and other means will be provided throughout the duration of this project.